Real Submanifolds and Holomorphic Mappings in Several Complex Variables

Abstract

Award: DMS-0072003
Principal Investigator: Xianghong Gong

The long term goal of this project is to study holomorphic
mappings and real submanifolds arising in the field of several
complex variables. One topic of proposed research is on the
existence of periodic points of reversible and symplectic
holomorphic mappings near an elliptic fixed point of general type
and on the integrability property of holomorphic symplectic
mappings via meromorphic eigenfunctions. Another topic is on the
topological and analytic structure of singular Levi-flat real
hypersurfaces in connections with singular complex
hypersurfaces. Other topics include the structure of
non-reversible conformal mappings and their connections with the
non-reversibility of real analytic Hamiltonian systems.

The differential equations dealing with the motion of N
masspoints (a model of the solar system) in the three-dimensional
space attracting each other according to Newton's law form a
Hamiltonian system. The periodic orbits of certain
area-preserving mappings corresponds to the periodic motion in
the Hamiltonian system of the restricted three body problem, and
the study of the existence of such periodic orbits goes back at
least to the work of Poincare and Birkhoff about a century
ago. Holomorphic symplectic mappings are natural extensions of
area-preserving ones. Such an extension might allow one to apply
methods in complex variables to the study of real Hamiltonian
systems. Indeed, recent work on the existence of non-reversible
area-preserving mappings depends on some deep knowledge of
conformal mappings studied extensively in complex analysis.